Development and Implementation of a Five Year Strategic Action Plan, 1990-1995

This grant will allow the School of Engineering and Technology at Tennessee State University to develop and implement a five year strategic plan. The plan will guide the School of Engineering and Technology towards a paradigm shift in the quality of its programs, resulting in an increase in the quanitity and quaility of engineering graduates from both the undergraduate and graduate programs. The strategic plan will receive direct input from private industry and government on the local, state and national level. Representatives will come together at a Commitment Conference where various funding strategies will be coordinated. The result will be an active, comprehensive action plan supported by the private and public sector that will enhance the efforts of the School of Engineering and Technology towards academic excellence.